A Global Positioning System Laboratory

The purpose of this project is to establish global positioning system (GPS) capabilities for a civil engineering technology program. With GPS (satellite positioning) becoming accepted and commonly used in science and industry, there is a need to teach this emerging surveying technology. The project provides 3 GPS receivers with antennas, two dedicated personal computers to reduce the satellite data, and the necessary data reduction and network adjustment software.